Equipment for Modern Physics and Optics Laboratories

This project will increase the breadth of the junior/senior laboratory experience for physics and engineering students at the University of Wisconsin, Platteville, by enabling the Physics Department to add topics in nuclear physics, lasers, fiber optics, and vacuum science. Specifi- cally, the Department will purchase optics equipment, including an optical table, helium-neon and nitrogen-dye lasers, and energy meters which, together with optics apparatus already on hand, will enable students to work in an excellent quality optics laboratory. A neutron source will be purchased in order to begin using a newly constructed neutron laboratory, and vacuum equipment will allow students to do work in vacuum science. Much of the equipment will also provide independent project and research opportunities for undergraduate students.